Acquisition of an LC/MS to Enhance Undergraduate Research and Training in Chemistry at the College at Old Westbury

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry and Physics at SUNY College at Old Westbury will acquire a liquid chromatograph/mass spectrometer (LC/MS). Research activities include quantitative analysis of bioactive compounds in herbal supplements; design and synthesis of halogenated derivatives and analogs of steroid hormones; and analysis of resonant radiation damage in biological models.

Liquid chromatography with mass spectrometric detection (LC/MS) is an extremely powerful technique used for the separation and analysis of complex mixtures. This instrument will substantially strengthen scientific research at this primarily undergraduate institution, and these studies will have a solid impact in the areas of medicinal chemistry and biochemistry.